Hierarchical Systems

This is a proposal to continue the research supported by NSF Grant ECS 9725148 along two direc-tions.

Computation of the reach sets of hybrid dynamical systems is needed to evaluate system perfor-mance. Prior work led to efficient algorithms for calculating the reach sets of linear systems with bounded control, with and without uncertainty. Those algorithms will be extended to hybrid sys-tems. Lambda-Shift is a new language for the specification and simulation of hierarchical, hybrid systems. It has the potential of providing an invaluable framework for the design of such systems. That potential will be explored.

The proposed research leverages efforts supported by the DARPA Program on Model Based Inte-gration of Embedded Software (MoBJES), and the ONR Program on Autonomous Vehicles.